TC: Medium: Security and Privacy Preserving Data Mining and Management for Disctributed Domains

A fundamental but challenging issue in information security is secure sharing and management of sensitive data and information among numerous organizations that form large-scale e-enterprises. Today, an increasing number of enterprises are using the Internet for managing and sharing users’ and enterprise information through online databases. However, security and privacy of data is an overriding concern currently limiting the proliferation of information technology. Among others, the two key security issues are; (a) interoperability challenge of diverse security policies exercised by collaborating organizations for sharing sensitive information and; (b) using collaborative knowledge for detecting and responding to any emerging security or emergency threats. The objective of this project to develop a scalable multi-domain information security framework which: (a) facilitates large-scale integration, mining, and analysis of multimedia data residing in multiple domains for identifying sensitive information that require controlled dissemination (b) allows distributed real-time content analysis of multimedia data streams across multiple-domains for correlating detectable events, (c)l provides integration and evolution of inter-domain access control policies for distributed multimedia applications, and (d) ensures protection of user’s information. The project uses several innovative approaches to meet these objectives. First, novel real-time data mining and stream-correlation methods is used for extracting useful content and detecting events embedded in data streams by using multiple sliding window operators. Second, an efficient privacy/security based multimedia data clustering mechanism allows a prevailing security policy to be adaptable to the changing context and the datasets. The uniqueness of this approach is the adaptive nature of security policies. In addition, a novel XML-based integrated mechanism is used for encoding of multimedia data in conjunction with multi-domain security policies for ensuring technical viability and portability of the system.
The proposed research is expected to have direct and long-term impact on developing secure information infrastructures, such as e-commerce, digital libraries, and healthcare systems, which are projected to have an important role at a global scale for the next several decades. The research results can help in alleviating the heavy financial risks associated with information and system security and in general, meeting the national information infrastructure security needs and threat management. The research will be pursued in collaboration with Cyber Center, the Center for Education and Research in Information Assurance and Security (CERIAS) and PURVAC facilities at Purdue University with which the PI’s have strong affiliation and on-going collaboration. Results and tools developed will be made available over the Web to research community. In The team has a track record of providing their research results and tools to various research communities in the areas of multimedia databases and information security management.

For further information see the project web site at the
URL: http://cobweb.ecn.purdue.edu/~dmultlab/ <http://cobweb.ecn.purdue.edu/%7Edmultlab/>